Mathematical Sciences: Group Theory and Buildings

This research is concerned with twin buildings and Kac-Moody groups. The main thrust of the work is towards a classification of twin buildings of rank at least three, and the groups of Kac-Moody type which operate on them. The principal investigator will also study local-global properties of affine buildings and the global structure of hyperbolic buildings. The research supported is in a crucial area where several parts of mathematics intersect. This project endeavors to classify certain finite groups by using finite geometry and combinatorics. The geometric connection to the theory of reductive algebraic groups and Kac-Moody groups is important for the study of finite simple groups.